Intertwining Liftings and Young Tableaux Related Problems

Abstract:

This project is to try to obtain a better understanding
of the structure of bounded linear operators acting on a complex,
separable, infinite dimensional Hilbert space. The principal investigator plans to continue her research on the theory of commutant lifting theorem, including the numerical
aspect and the generalization to the multioperator setting.
At the same time, the principal investigator will continue her
research on sums of eigenvalues of self-adjoint operators,
and its connections with intersection theory in algebraic
geometry, Young tableaux, and representation theory.

This project is to try to obtain a better understanding of the theory of linear
operators acting on Hilbert space (``operator theory''). There are two main
research areas that this proposal will focus on.
One is in the area of the theory of commutant lifting thorem,
which has proven to be useful in control theory in engineering.
The other one is on a problem about eigenvalues of sums of (self-
adjoint) operators. This problem originated in a celebrated
paper of Weyl in 1912 while he was studying partial
differential equations. Only recently that there was a
significant break through and the solution depends on
some very deep theorems in algebraic geometry. It is our
hope that this project will bring some insight into the
problem from the operator theory point of view. Furthermore we want
to extend the existing theory to a setting that can be applied to
quantum physics.